Gas-Solid Interaction at Semiconductor Surfaces

This research project, supported in the Analytical and Surface Chemistry Program, addresses the question of the mechanism of oxidative coupling of methane over oxide catalyst surfaces. The use of in situ Raman spectroscopy to identify potentially active forms of oxygen such as peroxide, superoxide, and oxo species is a principal focus of this work. Isotope labeling experiments will be used to help to identify intermediates, as well as to ascertain rate determining steps in the oxidative and non-oxidative coupling reactions of methane over oxide and zeolitic catalyst materials. Coupling of methane to form aromatic products is also being examined in this research. The conversion of methane, an abundant hydrocarbon resource, into more useful chemicals and fuels is an important goal of heterogeneous catalysis science. The thrust of this research project is directed toward developing an understanding of the detailed mechanism of methane conversion on oxide catalysts, primarily via oxidative coupling reactions. Raman spectroscopic probes will be developed and used to provide this understanding. The outcome of this research project could have significant impact on this technologically and environmentally important process.